A Cooperative Facility for Research on the Ecology of Spatial Heterogeneity

This award provides funds to establish a Cooperative facilities Center for Research on the Ecology of Spatial Heterogeneity at the University of Minnesota. The facility will intergrate the tolls of geographic information systems, image analysis, simulation models, and ecosystem analysis for research on the spatial dynamics of ecosystems in relation to global climate change, herbivores, cumulative impacts of disturbances, and Quaternary and bedrock geology. The participants are a mulitidisciplinary group of researchers from three campuses with expertise in wetland, riverine and forest ecosystems, Quaternary and exploration geology, palynology, ecological modeling, air photo interpretation and remote sensing, zoology, and forest economics. The facility will strengthen collaboration among the researchers and provide a tool to address common problems. The investigators are conducting meritorious research, have an adequate publication record, and have extramural support.